SBIR Phase II: Enabling Sharable Infrastructure for the Human/Computer Interface

This Small Business Innovation Research Phase II project addresses the challenge of seamless interoperability among computer systems and user interface components such as displays and keyboards. Such components today are tightly coupled with the computer, which restricts the utility of both especially in mobile systems, where users invariably have to choose between usable displays and reasonable portability. The system being separates I/O devices from computing devices enabling a different mode of use of computers where a user can carry around much smaller computing devices and use shared larger I/O devices as available.. The design and implementation of these enhancements will be guided by feedback from users of prototypes deployed in the field.
In the long run, the widespread adoption of this approach has the potential to revolutionize the way humans interact with computers, by allowing computing devices to shrink out of sight, while freeing interfaces from the constraints of portability. The technology has immediate commercial applications in health care and mobile computing as well, these markets will be explored through future strategic partnerships.